Postdoctoral Research Fellowship in Chemistry

Dr. Kenneth Bruce Laughlin has been recommended for a Postdoctoral Research Fellowship in Chemistry Award. Dr. Laughlin's doctoral degree was from the University of California at Berkeley under the supervision of Professor Richard J. Saykally. He intends to continue his research at Massachusetts Institute of Technology under the sponsorship of Professor Sylvia T. Ceyer. Dr. Laughlins's area of Postdoctoral Research will be Electronic Processes in Molecule-Surface Collision Dynamics.